MIE: JSU-Model Institution for Excellence Planning Proposal

9354158 Lyons, Sr. Several sources indicate that HBCUs have been the major source of B.S. degrees awarded to African-Americans i Science, Engineering and Mathematics (SEM) disciplines. But the situation is rapidly changing. Several data also suggests that SEM bachelor degrees awarded to African-Americans by HBCus has been declining since 1987. The Jackson State University School of Science & Technology (JSU-SS&T) is submitting a proposal for a planning grant to develop thorough, comprehensive Model Institution for Excellence (MIE) implementation project that will enhance existing programs and create new areas of strength in science and technology. The planning grant will provide resources to review, assess, and evaluate in a systematic way, the process presently being used in the recruitment retention, and graduation of students in SEM education. Enhanced/corrective strategies will be planned for implementation using known models which have proven successful. The overall project goal is to enhance and strengthen JSU's SEM degree-producing capacity all levels and increase the number of SEM graduates, especially minorities quality scientists/engineers who can contribute to advancing the state of SEM knowledge and address the technical problems of society. Specific focus will be directed toward identifying, enhancing, or developing programs to increase SEM recruitment, enrollment, retention, graduation rate, and students pursuing graduate degrees. It is expected that all areas will be improved by at least 100% over the 1988-92 (five-year) average. Activities to be developed in support of JSU MIE goals include: curricula analyses and restructuring, enhancement of specialized SEM academic programs, development of new degree programs, development of a comprehensive SEM student support center, integration of information technology into the curricula, and enhancement of the educational/research support infrastructure. Jackson State University's administrat ion is totally committed to the success of the MIE initiative - planning phase and implementation. It's commitment is demonstrated by the fact that the Project Director is the President of the University and the Co- Project Director is the Dean of the School of Science & Technology, the unit responsible for the planning and implementation of the project. Several faculty representing various disciplines are responsible for key components of project planning and implementation. The project leadership by the President of the University will stimulate involvement of the whole University, with its various support mechanisms, to ensure inclusion, diversity and success. To develop a complete, comprehensive proposal to establish a Model Institution for Excellence at JSU, a total of $75,000 is being requested. In an effort to sustain program operations beyond federal funding, the JSU MIE key strategy is to establish and maintain a SEM Endowment through contributions form industry partners committed to the MIE program goals and continuity. Several representatives from industry partners in this planning process and indicated continued support through the development and implementation phases.